1998 Gordon Research Conference on Catalysis to be held at Colby Sawyer College, New London, NH on June 21-26, 1998

ABSTRACT Proposal Title: 1998 Gordon Research Conference on Catalysis Proposal Number: CTS-9801724 Principal Investigator: Raymond J. Gorte and Carlyle B. Storm Institution: Gordon Research Conferences Support is provided to financially assist junior faculty, graduate and postdoctoral students who are attending the 1998 Gordon Research Conference on Catalysis, to be held at Colby Sawyer College, New London, New Hampshire, on June 21-26, 1998.